REU Site: SURFing the Materials Science and Engineering Lab: A NIST-NSF Partnership

The National Institute of Standards and Technology (NIST) operates a Research Experience for Undergraduates (REU) site in its Materials Science and Engineering Laboratory. Students are recruited from across the country for a twelve-week summer research experience, with an emphasis on recruitment of members of underrepresented groups in science and engineering. Students participate in a wide range of research in the areas of ceramics, solid state chemistry, metallurgy, polymers, neutron condensed matter science, and materials reliability. In addition, students attend a weekly seminar series and participate in various social activities.

The REU students have access to exceptional instrumentation and facilities at NIST. The experience also includes an early and valuable exposure to the interdisciplinary research environment of a national laboratory.